Operating Systems of the 90s and Beyond (Workshop in Germanyin July 1991)

This award provides travel grants for Americans to attend a workshop on Operating Systems for the 90's and Beyond to be held in Germany. An organizing group from the U.S. and Europe has set a list of topics, selected key presenters, arranged funding for travel and lodging in Europe, and arranged for sponsorship by several professional societies and industrial concerns. The Proceedings will be published.